Rebonding of Prestressed Tendons in Concrete by Internally Released Adhesives

Demolishing of prestressed concrete is difficult due to the energy stored
in the prestressing metal tendons which is usually up to 125,000 pounds. In
unbonded tendons the energy may be catastrophically released, threatening
the safety of people, workers and buildings. Most of all flat plate
construction and bridge girders produced utilize tensioning of metal
tendons; so the problem is large and it most improtantly it is unresolved.

The objectives of this research are to develop and to test means of
restraining or rebonding the tendons under stress for continued effective
load transfer during use and for safe demolition. The proposed research
approach consists of four activities. 1) We will develop information on the
forces available in prestressed members and calculate the countervailing
forces needed to be supplied by the release mechanism and materials. 2)
Large scale laboratory testing will be done on the proposed systems.
Strucutral tie downs and tensioning devices will be used. 3) Full scale
prestressed girders will be tested using the rebonding system. 4) the data
will be evaluated and disseminated.

The impact on education should be large. This project should employ an
estimated 25-30 different students from both undergraduate and graduate
levels. They will be active in all aspects of the project. The proportion
of women gaining that experience should be high, approximately half or more.